Developing Teacher Leaders in Data Science and Mathematical Modeling

This Noyce Track 3 project aims to serve the national need of developing highly effective teacher leaders with the skills necessary to instruct secondary students in mathematical modeling and data science. This project will support 24 master teacher fellows (MTFs) who are practicing mathematics teachers (Grades 6-12) by offering stipends and tuition support for the fellows to engage in professional development activities that will help them become leaders in mathematical modeling and data science in their school districts. All MTFs will earn a Data Modeling post-bachelor’s certificate, and a cohort of these MTFs will earn a master’s degree. The proposed project components will enable high-achieving practicing teachers to become experts in mathematical modeling and data science.

This project at Utah State University (USU) includes partnerships with Uintah, Duchesne, and San Juan School Districts, along with Uintah River High School within the Ute Tribe Education Department in Utah. Project goals include: (1) Develop 24 teacher leaders over six years (who are practicing mathematics teachers) with expertise in data science and mathematical modeling to levels requisite for strengthening modeling and data science education; (2) Develop teacher leaders with the pedagogical expertise to incorporate expert teaching in data science and mathematical modeling lessons; (3) Develop teacher leaders who will engage with their communities through research activities and mentorship of prospective and early career teachers. The design of our project enables the creation of mathematical modeling and data science learning materials and instructional techniques that are grounded in the needs and experiences of Utah students. Through cultivating teacher leaders in high-need school districts with pedagogical content knowledge in mathematical modeling and data science, this project has the potential to improve STEM education outcomes for students in the state of Utah. This project will be iteratively evaluated. Evaluation of the project will be guided by the following evaluation questions: (1) To what extent does the project team provide programmatic support to MTFs and prepare them as instructional leaders with expertise in mathematical modeling and data science?; (2) To what extent does the program develop teacher leaders with pedagogical expertise in incorporating strong pedagogical practice in mathematical modeling and data science lessons?; (3) To what extent does the program develop teacher leaders as mentors for prospective and early career teachers in Utah?; (4) To what extent do coursework, coaching, and mentoring benefit MTFs and their local school districts?; (5) What factors facilitate or hinder progress toward project goals?; and (6) What progress has been made toward sustaining and scaling up project activities and strategies? The results of the project will be disseminated to help enhance the field. This Track 3: Master Teaching Fellowships project is supported through the Robert Noyce Teacher Scholarship Program (Noyce). The Noyce program supports talented STEM undergraduate majors and professionals to become effective K-12 STEM teachers and experienced, exemplary K-12 teachers to become STEM master teachers in high-need school districts. It also supports research on the effectiveness and retention of K-12 STEM teachers in high-need school districts.